2009 PI Meeting for the Cluster Exploratory Program

This award supports a PI meeting for the awardees of the Cluster Exploratory (CLuE) program. The meeting is being held in the bay area of California and consists of a full-day event open to the general public (Monday, October 5, 2009) and a half-day private event for CLuE awardees only (Tuesday, October 6, 2009). The open event will showcase the CluE research while the closed event will be used to exchange lessons-learned and interact with the industrial partners, Google and IBM.